Undergraduate Research Participation in Electrical Engineering

The Electrical Engineering Department at the University of Maine will offer ten undergraduate students the opportunity to participate in a Research Experiences for Undergraduates program. Students will receive financial awards plus an appropriate subsistence allowance. The available research projects include: )1 Microwave Acoustic Solid State Sensors; 2) Robotics, Computer Vision and Neural Processing; 3) Wideband Signal Processing Components for Communications Applications; 4) Motion Control; 5) Microprocessor Instrumentation Applications; 6) Environmental Noise Measurements; 7) VLSI Based Neuronal Models; and 8) Power Systems Applications. In addition to extensive university facilities, students will also have access to facilities at various nearby industries such as Bangor Hydro Electric and Central Maine Power Companies, James River, Champion and Scott Paper Companies, Digital Equipment Corporation and National Semiconductor. At the program culmination a written report and an oral seminar are required from the student.